Fundamental Studies in Adiabatic Shear Localization

9402618 Ramesh A fundamental investigation of the initiation and growth of adiabatic shear bands will be made in a combined theoretical- experimental program. Specifically the influence of microscopic mechanisms, geometric defects and material properties on shear localization will be examined. The recovered specimens will be examined using transmission electron microscopy in order to characterize the microscopic mechanisms. ***